Blueprint for Change in Technician Education

The New Jersey Center for Advanced Technological Education and other NSF Centers of Excellence are investigating activities required to implement change in technician education. The activities are capitalizing on the experience that reformers have had in successfully implementing model programs by providing a forum where people behind successful ATE centers and projects can articulate the pathways to change. A Steering Committee is exploring the most effective means of encouraging and supporting adoption of innovative programs and practices. In addition to ATE principal investigators, the Steering Committee also includes industry representatives, a researcher on two-year college programs, an evaluator, and two external members. Avenues for disseminating results include conferences, mentoring, interactions with professional societies and accreditation boards, and publications.